Quantum Critical Phenomena and Non-Fermi-Liquid Physics

0081075
Millis

This grant supports the theoretical work of a distinguished, mid-career PI on strongly
Correlated electron systems. The list of research projects in this grant includes (1)
Disorder and Quantum Critical Phenomena, (2) High Temperature Superconductivity and
(3) Nonequilibrium phenomena in highly correlated systems. The class of problems here
is frequently referred to as non-Fermi liquid effects. They lie beyond the edge of
understanding of electrons in metals offered by Landau's Fermi liquid theory. The
anomalies beyond the Fermi liquid theory include the large number of
thermodynamic/calorimetric results in rare-earth alloys, which are believed to be near a
quantum critical point due to disorder. There are related effects in materials relevant for
high-density magnetic memories and in relaxor ferroelectrics. There are nonequilibrium
effects such as the high temperature resistivity of high Tc copper oxides. The projects
involve analytical and numerical approaches along with close contact with relevant
experimental work.
%%%
The theoretical work supported in this grant comes from two themes in current research on materials. There are certain anomalies in the properties of electrons in metals, which
Apparently lie outside the conventional paradigm, referred to as the Landau's theory of
metals. They are caused by the presence of substantial disorder and or extreme
environmental such as pressure, magnetic field or temperature. The work here is
fundamental and far-reaching in that it may require development of sophisticated, new
mathematical tools and at the same time it is motivated by a need to understand materials
which are important for high density magnetic memories or materials which use their
ferroelectric properties for memory applications. This work will be carried out in close
contact with experimentalists and will make use of both analytical and numerical
techniques, as may be necessary.
***